Special Project: Java Resources for Introductory Computer Science Education

This project supports the development of a set of resources for using Java in the introductory programming course in computer science. The resources include
- a definition of a subset of the Java standard APIs appropriate for the introductory course
- a public Web site containing a manual for this subset, and
- a set of APIs appropriate for the introductory course
There will also be a survey and evaluation of noncommercial resources for teaching Java.

The project will support and enable improved pedagogy in the introductory programming course in Java by solving a number of problems encountered by instructors in using Java in its current state. This will lead to a larger and more diverse group of students completing the introductory course and being able to go on to further study in computer science.